Biological Information Technology Systems - BITS: Principles of Information Dynamics in Basic Neural Circuits: A Hybrid System Approach

EIA-0130708-Mikhail I. Rabinovich-University of California-San Diego -Title: Principles of Information Dynamics in Basic Neural Circuits: A Hybrid System Approach

Hybrid systems: biological neurons interacting with electronic model neurons via electronic or computer simulated synapses can be a powerful approach for understanding basic neural computational principles and for building small hybrid and artificial processors that will create new perspectives for modern information technologies.

Based on our previous studies on neural dynamics in living cells, computer models and analog electronic implementations of model neurons and connections, we are planning to work in two directions: (i) we will explore the main principles of information processing that uses dynamical elements, i.e. neurons, synapses and small neural circuits; and (ii) we will reconfigure real biological networks by utilizing electronic neurons and synapses in order to transform such circuits into controllable information devices with new functions and new abilities.